Mathematical Studies of the Dynamics of Excitable Systems

Keener
0211366
The investigator uses mathematical models and analysis to
study the dynamics of several physiological systems in which
excitability is a common and fundamental feature. The three broad
problem areas to be investigated are
1) The initiation and dynamics of cardiac arrhythmias;
2) The dynamics of defibrillation;
3) The dynamics of autoimmune disease.
The study of these problems involves the development and use of
sophisticated mathematical models and tools, including advanced
numerical methods such as immersed boundary methods, bifurcation
theory and dynamical systems theory, and asymptotic analysis.
These tools are used to give theoretical understanding to problems
of border zone and ischemia related cardiac arrhythmias, APD
instabilities and their relationship to the onset and development
of reentrant arrhythmias, mechanical alternans deriving from
instabilities of the calcium handling system or crossbridge
dynamics, the success or failure of defibrillation, and
oscillatory autoimmune responses. Serious attention is given to
obtaining agreement between theoretical results and experimental
findings. To that end collaborations with experimentalists
examine gap junction coupling of rabbit myocytes, the effect of
hypertrophy on excitation-contraction coupling through the
sodium-calcium exchanger, the effect of mutations on the delayed
rectifier potassium channel that lead to increased proclivity
for fatal arrhythmias, and the role of mimicry in oscillatory
dynamics of cystic fibrosis in mice.
Excitability is one of the most important features enabling
signalling in physiological systems. It is crucial to the
operation of nerves, muscle, the heart, the immune system, and
blood clotting as well as numerous gene regulatory networks. The
specific goal of this project is to gain an improved theoretical
understanding of how the normal function of systems that rely on
excitability can go awry, exhibiting pathological behaviors, and
how these pathological behaviors might be controlled or
prevented. The behaviors that are studied here are the result of
interwoven interactions of simpler behaviors, resulting in
complex behaviors that defy understanding through intuition or
simple means. The investigation therefore focuses on the
development and analysis of mathematical models of these
behaviors in the belief that substantial new and important
insights can be gained, and new hypotheses formulated that are
not apparent from phenomenological descriptions. While this
project has as its main focus several problems relating to
abnormalities of the cardiac cycle, it extends far beyond to many
areas of physiology where common principles are involved. The
project includes a significant training component for students.